Hypoelliptic Calculus, Noncommutative Geometry and CR Related Geometries

The proposed research consists of 3 main items. The first item aims to
make use of the noncommutative geometry framework in order to
reformulate the index formula in CR and contact geometry. It also fits
nicely with the long term program of
Fefferman and Stein and others aiming to relate the subelliptic
analysis of the Kohn-Rossi to the CR geometry of the
underlying manifold. Moreover, it has some overlap with recent work of
Epstein-Melrose-Mendoza. This project has two natural follow-ups. One
in collaboration with
Henri Moscovici dealing with an index formula for strictly pseudoconvex
domains relating the subelliptic
analysis of the dbar-Neuman problem with the geometry of the domain
and its boundary. The other
one aims to study Lorentzian manifolds with Fefferman metric from a
noncommutative geometric viewpoint, hence
is a first step towards a general noncommutative geometric study of
Lorentzian manifolds. The second item is
a joint project with George Marinescu and
deals with obtaining CR analogues of the holomorphic Morse inequalities
of Demailly
in order to get embedding theorems for CR and complex manifolds. The
last item proposes to
to develop a geometrically adapted hypoelliptic calculus on equiregular
Carnot-Carath\'eodory manifolds in order to be able to make use of the
noncommutative geometry framework in this
setting and to solve the Yamabe problem on contact quaternionic
manifolds.

The broader impact of this proposal is at two levels. The first level
is within mathematics but outside the scope of
noncommutative geometry which is the primary field of the PI. On the
one hand, it is proposed to make use of
the framework of Connes' noncommutative geometry for solving
geometric problems related to CR, contact and complex manifolds. On the
other hand, the pseudodifferential tools
of the part (iii) of this proposal will provide a powerful tool for
studying hypoelliptic PDE's.
The second level is that of other sciences. First, at illustrated by
its part on Lorentzian geometry this proposal
aims to contribute to the compelling program of unifying quantum
mechanics and
gravity, hence should contribute to a better understanding of the
Universe. Second, hypoelliptic PDE's arise in
many fields of science, for example physics, engineering, finance, and
robotics. Therefore developing tools for studying hypoelliptic PDE's
should help making progress in these fields.